Upgrading of the UCSB Multi-Collector Thermal Ionization Mass Spectrometer

9316951 Mattinson This award provides one-half the funding needed to modernize a thermal ionization source mass spectrometer operated in the Department of Geological Sciences at the University of California at Santa Barbara. The institution is committed to providing the remaining funds necessary for the project. The research projects necessitating the upgrade include geochronology of very small samples using uranium-lead isotopes, tracer studies of mantle processes, and uranium disequilibrium dating studies of marine carbonate materials. The upgrades to the instrument will enhance its ability to analyze very small amounts of samples, a basic requirement of the research. ***